Mathematical Sciences: Competition Graphs of Digraphs, BoundGraphs of Posets, and Related Problems in Clique Coverings

This project addresses problems in three related areas: the characterization of graphs which arise as upper bound graphs of posets; the characterization of graphs which are both the competition and the common enemy graph for the same acyclic digraph; and a more general investigation of graphs which arise as intersection graphs of edge clique coverings of a given graph. Competition graphs of digraphs are a tool for modeling complex systems such as food webs and transmission networks, and also play a role in taxonomy problems.